Upgrading of an Undergraduate Materials Testing Laboratory.

The objective of this project is to improve the materials testing laboratory for the Engineering Technology and Construction Management and Technology programs at a primarily minority institution. A new strength of materials course will be developed to support the general engineering program. An IBM PC/XT will be interfaced to a tensile tester to provide experience in automated data acquisition. In addition, an impact tester, polariscope, polisher/grinders, and a materials microscope will be obtained.